REG: Wideband Indoor Multipath Measurements

This Engineering Research Equipment Grant will support purchase equipment for wideband channel measurements for wireless indoor communications. Results of these measurements will be used for developing a statistical model and computer simulation for the channel. The scope of applications for wireless indoor communications is wide and it is expected to expand drastically in the future. Current research activities in this area are motivated by wireless LANs(WLLAN), wireless PBX systems, and portable phones (1). In the future these applications will be complemented with wireless communication between mobile robots and other services unknown at the present time. Wireless indoor local network is expected to revolutionalize communication between various items of equipment in manufacturing floors, offices, research labs, hospitals, warehouses, and shopping areas. This grant is funded with additional support from the Instrumentation, Sensing and Measurement Program in ECSE and the Automation and Systems Integration Program in DMCE.